Hawaii Ocean Mixing Experiment: Nearfield Program: Three-Dimensional and Temporal Structure of Turbulence

9819535 Gregg

Funding is provided to conduct a large coordinated experiment (HOME: Hawaiian Ocean Mixing Experiment) near the Hawaiian Ridge to determine whether sites with rough topography are responsible for the mixing of the global ocean. The goals are to identify the major energy pathways for ocean mixing and achieve an approximate energy budget for the region. The Near-field experiment of the HOME project focuses on the investigation of the dynamical processes in the immediate vicinity of the Hawaiian Ridge, and especially the response to barotropic tidal forcing including generation of low- and high-mode internal waves, propagation and turbulent dissipation and mixing. This sub-project will focus on mapping the spatial extent and spring/neap variability of the internal tide over Kaena Pt. Ridge. Specifically, the Advanced microstructure profiler (AMP) will be deployed with a depth-cycling towed body from the stern of the R/V Revelle while moving slowly across and parallel to the Ridge. The shipboard sonar will simultaneously map the velocity field to 700 m. Upward and downward looking Acoustic Doppler Current Profilers (ADCP) on the towed body will measure deep shear closer to the bottom and with higher vertical resolution that can be measured by shipboard ADCPs.